Variation of Selmer Groups

Abstract for award DMS-0400232 of Ramakrishna:

The main purpose of this project is to continue an
investigation of the PI of mod p Galois representations,
p-adic Galois representations and their relations with
problems in number theory and arithmetic algebraic geometry.
A particular emphasis will be the understanding of how Selmer
groups of various sorts change as more primes are added
to the ramification set. In one context this variation
of Selmer groups relates to how many `new at q' newforms there are
congruent to a particular oldform.

The PI's research is in Algebraic Number Theory.
This field has its roots in the study of whole numbers and their
various properties. A key tool in the PI's research
is Galois theory. Galois theory is the study of symmetries of solutions
of equations. The understanding of these symmetries
shed slight on the the solutions themselves, a
basic mathematical question. An example of such a symmetry is the
fact that complex solutions to polynomial equations occur in
complex conjugate pairs.